Financial Markets and Financial Intermediaries

9422194 This project advances our understanding of industrial organization in three areas: financial markets and financial intermediation, the timing of investment decisions, and general equilibrium with incomplete information. The first part of the project studies the striking differences between the financial systems of different countries. In the U.S., for example, financial markets are highly developed; in other countries such as Germany, intermediaries play a much larger role. These cross- country differences raise questions about the optimality of different financial systems and the costs and benefits of convergence. The object of this study is to compare the relative performance of financial markets and intermediaries in providing risk sharing, information, and allocative services. The work involves developing models of intermediation and comparing their welfare properties with those of financial markets. The second part of the project studies the timing of business investment decisions. When making investment decisions, firms often have an incentive to delay in order to gather information about what other firms are going to do. This leads to strategic behavior, since every firm prefers to make its commitment after others have made theirs. This project shows how endogenous delay in business investment decisions can prolong recessions and increase the amplitude of fluctuations in economic activity, and produce cycles in the introduction of new technology. An important function of the market system is to economize on the amount of information required to achieve an efficient allocation of resources. However, markets may not function well when some agents are able to exploit private information. The third part of the project builds on and extends earlier work which modeled equilibrium in market systems with private information. Two applications, one concerning financial regulation and one concerning securitization of contracts, motivate the deve lopment and analysis of a richer class of models to investigate how well the market system copes with private information in these environments.